PROUD: Parallel Resources on User's Desks

9303181 Warren This is an award for equipment to investigate the development and scalability of algorithms and systems for parallel computers. The instrumentation to be acquired include a number of high performance parallel workstations, a scalable distributed memory multiprocessor, and a high speed network. The research supported by this infrastructure includes organic chemical synthesis, automated theorem proving, very high speed transaction processing, parallel prolog, 3-D graphics and volume visualization, and simulations of massively parallel computers. ***